Numerical Study of Dryline and Frontogenesis

It has been known for many years that a phenomenon known as the "dryline" is a preferred zone for thunderstorm development. The dryline represents the boundary between maritime tropical air form the Gulf of Mexico and dry air from the desert Southwest. Using a numerical model coupled with previously collected data, the Principal Investigator will study the formation/evolution of the dryline, its interactions with severe weather and the merger of synoptic fronts and drylines. Results will be beneficial for improved predictions of timing and location of thunderstorm initiation.//